Using ecological theory to restore invaded Mediterranean-climate ecosystems

Invasive species represent one of the most serious threats to vegetation community composition and ecosystem function worldwide. However, science-driven techniques needed to restore these invaded communities are lacking. One specific hypothesis is that community resistance to invasion can be strengthened by selecting native species that are similar to invasive species in resource use, thus increasing competition. This is based on the theory of limiting similarity, which posits that there is a finite limit to the similarity between the resource-use of co-existing species. The first step in elucidating the utility of limiting similarity approach to restoration is quantifying differences in resource use between native and invasive species across a variety of invaded systems. Through this project, functional trait data will be collected from native and invasive plant species in two vegetation communities in Spain. The data will be combined with existing data from three other mediterranean-climate ecosystems (MCEs) to test how one ecological theory — limiting similarity — can be used to restore invaded vegetation communities. Results from the present Catalyzing research will be incorporated into a subsequent proposal that will use these trait data to select native species that are functionally similar to invaders and to monitor community composition in these restored systems over time.

Results from this research will contribute to an understanding of conservation issues in MCEs, which are highly diverse and increasingly threatened by human activity. The work will directly contribute to the practice of restoration by exploring how easy-to-measure plant traits can be used to select native plants that will increase invasion resistance of restored communities. In addition, this project will promote a new collaboration between an early career, female U.S. scientist at an undergraduate institution and an internationally renowned plant ecologist in Spain. An undergraduate student will participate in the activities in Spain, benefitting from close faculty-student mentoring and the opportunity to engage in international research at the early stage of an academic career.